A Computerized Undergraduate Psychology Laboratory in Visual Perception

The aim of the project is to introduce undergraduate students to the scientific study of visual perception. Students enrolled in various psychology courses will serve as experimenters, subjects, and data analysts as they empirically investigate phenomena related to spatial, color, form, depth, and motion perception. This project will affect a broad range of students as the new laboratories are targeted at freshmen- level courses for non-majors up through senior-level courses reserved for psychology majors. While earlier vision-related coursework has relied on non-interactive, passive demonstrations of visual phenomena, the requested equipment allows the implementation of a hands-on, interactive student laboratory. A comprehensive, flexible computerized system capable of handling many different visual perception experiments represents the specialized equipment needed to carry out the planned laboratories. The set-up centers around a high-speed computerized display system that is capable of delivering well controlled, ultra-high resolution graphic stimuli. Collectively, this system gives undergraduate students a chance to experience the scientific procedures involved in studying the human visual system.